Mathematical Sciences: Unique Continuation, Regularity of Solutions to Linear and Nonlinear Equations of Nonelliptic Type, Symmetry for PDE's

9404358 Garofalo This award supports mathematical research on problems arising in the field of partial differential equations. The work is concerned with three main projects. The first concerns unique continuation for a class of subelliptic operators modelled on the Baouendi-Grushin operator and absence of embedded eigenvalues for such operators, or for the sub-Laplacian on the Heisenberg group or, in general, on a nilpotent homogeneous Lie group. The second line of investigation will study optimal regularity of solutions of nonlinear subelliptic equations which arise as Euler equations of the Sobolev functional in the nonquadratic case, isoperimetric and Sobolev inequalities, reactions between harmonic and surface measure for Lipschitz domains on the Heisenberg group and Wieners criterion of Kolmogorov's equation. Work will also be done on symmetry for partial differential equations and the Pompieu problem, on a conjecture of DeGiorgi connected with flow by mean curvature, extremal functions in the Sobolev or the isoperimetric inequality for the Baouendi-Grushin operator or the sub-Laplacian on the Heisenberg and the generalized torsion problem. Partial differential equations form a basis for mathematical modeling of the physical world. The role of mathematical analysis is not so much to create the equations as it is to provide qualitative and quantitative information about the solutions. This may include answers to questions about uniqueness, smoothness and growth. In addition, analysis often develops methods for approximation of solutions and estimates on the accuracy of these approximations. ***